Postdoctoral Research Fellowship in Biological Informatics for FY 2000

This action funds an NSF Postdoctoral Research Fellowship in Biological Informatics for 2000.

The research and training plan is in the area of Ecology and is entitled "Evaluating Alternative Biodiversity Conservation Hypotheses: A test of the Coarse-Filter Paradigm". GIS and computer modeling are used in this study to develop a coarse-filter computer model for conservation reserve network planning in Ecuador. The model will generate multiple alternative "biodiversity reserve hypotheses" with variable sets of increasing complexity and spatial resolution. The efficacy of the model will then be evaluated with extensive biotic inventory databases for birds and plants.